Equipment to Restructure an Introductory Geology Laboratory Around Themes of Earth Systems

The Department of Geology is purchasing equipment to restructure the introductory physical geology laboratories around an earth systems theme. This innovative approach involves 1 to 4-week field exercises, rather than traditional laboratory experiments on isolated topics. Each theme illustrates the complex relationships among seemingly disparate subjects. It is expected that a rigorous, intellectually challenging laboratory